Silcon Micromachined Microelectrode Arrays for Multisite Neuronal Recording in the Mammalian Brain

The grant requested in this proposal will support the development of a technology for the fabrication of microelectrode arrays ("probes"). The probes will be capable of being inserted with minimal tissue trauma into the brain, where they will record neuronal signals. The arrays will be fabricated using silicon micromachining methods, and will be tested in anesthetized animals. CMOS integrated circuits will also be designed, to amplify the signals recorded from each of the several recording sites on a single probe, and multiplex them onto a single output line. Interconnect and encapsulation methods will be developed to combine the probes and electronics into a package suitable for use in animals. The probes will be designed so that the CMOS electronics can ultimately be integrated on a common substrate with the probes. The probes will be used to obtain simultaneous recordings from multiple sites in the mammalian brain. Such recordings are used to obtain information that is not available through other means, in order to learn about how the brain works on the single-neuron and network levels. The instruments to be developed under this grant will greatly extend our ability to conduct this basic neuroscience research.